An Error Control Scheme for Large-Scale Multicast Applications

In the Internet today, packet losses are typically recovered using retransmission, as for example in TCP. The mechanism employed in TCP works well in the unicast environment. In multicast environment, however, such as the MBone, the TCP approach does not work well, especially when the multicast groups are very large. Difficulties arise because of two main problems: implosion and exposure. Implosion occurs when following a packet loss, many receivers multicast the same request; implosion also occurs when in response to a request, many receivers multicast the lost packet. Exposure occurs when requests and retransmissions reach members that have not experienced loss. Both implosion and exposure cause unecessary overhead. Existing solutions are not general because of the trade-offs they offer for reducing implosion and exposure. SRM for example, trades latency for reducing implosion, and uses a crude method for reducing exposure. RMTP, TMTP and LBRRM reduce both implosion and exposure by arranging members in a tree. The tree, however, is hard to construct and maintain in the face of dynamically changing groups without any access to topology information. We propose a new scheme to perform reliable multicast which overcomes the limitations of existing solutions. Our scheme is based on a dynamic tree hierarchy, but pushes the task of costructing and maintaining the tree to the network, where it can be done very efficiently. To achieve this, we enhance the IP Multicast service model by adding new forwarding services to the routers. The scheme combines three ideas to achieve near optimal performance: (a) electing a replier link at each router to eliminate implosion, (b) defining the concept of a "turning point" to discover the subtree where loss occurred, and (c) using "directed multicast" to limit replies to the loss subtree. These ideas minimize recovery latency and allow group members to be completely isolated from the details of group topology, thus allowing fast adaptation to dynamic membership changes.